Dynamic Self-Assembly Mediated by Contact Electrification

Abstract
CHE-0503673
Grzybowski/Northwestern

The molecular origins and mechanisms of dynamic electrostatic self assembly processes are the focus of this research project supported by the Analytical and Surface Chemistry Program. Professor Grzybowski and his students in the Department of Chemistry at Northwestern University are examining the thermodynamics of dynamic electrostatically self-assembling ensembles of charged polymeric microparticles of various shapes and sizes. Contact electrification drives this dynamic self-assembly process, and a systematic investigation of the thermodynamic phase diagrams of these systems using both experiment and modeling will lead to a fundamental understanding that will allow rational design of self-assembly. This information is crucial to developing approaches to molecular electronic material designs, and rational modification of surface properties in coatings and bulk materials.

Using a combination of experimental studies of model systems, and analytical and numerical modeling of self-assembly processes, Professor Grzybowski and his coworkers are examining dynamic electrostatic self-assembly. Contact electrification between polymeric particles is used to systematically probe the self assembly process. This work has direct application in the design of molecular electronic devices and engineered surface coatings.